DISSERTATION RESEARCH: Molecular Markers and Evolution of Fish Blood Flukes (Digenea: Sanguinicolidae)

NSF-DDIG funds will improve the resulting quality of the Co-PI's dissertation by 1) helping him
generate the first comprehensive phylogeny for fish blood flukes (Digenea: Sanguinicolidae)
through financing the acquisition of molecular sequence data for critical taxa, thereby 2)
allowing him to test for parasite-host co-phylogeny. These sequence data will mesh with the
Co-PI's current morphological and ecological studies of cercarial and adult sanguinicolids to
yield a combined evidence phylogeny. The phylogeny will then be compared with pre-existing
fish phylogenies to test for parasite-host co-phylogeny. These results will comprise the first
clade-based phylogeny for Sanguinicolidae, identify the likely sister taxon to Sanguinicolidae,
and ultimately contribute to our understanding of the evolution of Digenea.
Broader Impacts:
NSF-DDIG funds will help finance marine parasitology research experiences for K-8, high
school, and undergraduate students and the public in Mississippi, an EPSCoR state. These
activities include underrepresented groups and will strengthen already-instituted partnerships
and/or establish new partnerships with federal and state wildlife agencies, private industry,
museums, teachers and students from a magnet school for mathematics and science,
educators at a nationally-recognized marine education center, and university students and
researchers.